National Summer School in Nuclear Physics

0088940
Haxton
This project will allow the continuation of the national
Summer School in Nuclear Physics, now in its 12th year, for
an additional five years. This annual school is intended for
advanced graduate students and beginning postdoctoral
researchers in theory or experiment, and consists of several
courses of introductory lectures by leading nuclear physicists.
One main goal is to provide nuclear physics students with a
broad perspective on the field, thereby combating the
specialization that often occurs within focused research
groups. NSF funding for the school covers the expenses
of the lecturers and a portion of the local costs of the
students who attend. More information on this year's school
can be found at http://int.phys.washington.edu/NPSS/NPSS.html.